Interannual Variability of Tropical Climate

This project is concerned with diagnostics of circulation and climate anomalies, and statistical climate prediction for tropical regions. Specific tasks to be tackled over the next three years are : (1) The development of prediction methodology for selected tropical regions including Northeast Brazil, sub- Saharan West Africa, Northwestern South America, and India- Indonesia sector, (2) mechanisons of the seasonality of the Southern Oscillation, (3) long term climate changes in Eastern Africa and the Indian Ocean over the past 130 years, (4) the relation of Indian summer and winter monsoons, and (5) the role of Tibetan Plateau in tropical circulation anomalies. These studies will improve our understanding of the important physical processes that link regional and planetary-scale circulations in the tropics.